Software Capitalization Funds for a Cluster Implementation of MPI

The Ohio Supercomputer Center (OSC), under the direction of the PI's, will develop comprehensive documentation for MPI (Message- Passing Interface) cluster software called LAM. LAM is currently supported on networks of workstations. The documentation will enable other researchers in academia to utilize LAM for building parallel processing applications quickly. The project will also port the software to low-end UNIX platforms and high- end shared memory multiprocessors systems supporting Symmetric Multiprocessing (SMP) UNIX. Small business users will benefit from the availability of the software on low-end workstations. The project is supported under the Software Capitalization Grants program.